Preferences, Selection, and Evolution of Complex Vocal Behavior

Bird song has intrigued people for a long time. Besides occasionally being very musical, it is acoustically very complex and shows much variation among species. Males of some species sing only a single song their entire life, while males of other species possess extremely large repertoires of different songs. For example, male Northern Mockingbirds can sing over 250 different songs during any particular day, and they continue to learn new songs throughout their life. Further, they combine these songs in predictable ways, thus providing much information about their current behavior, motivational state, and reproductive status. Why particular species, such as the mockingbird, possess such complex singing behavior has long perplexed evolutionary biologists. The possibility that females may be distinguishing among males on the basis of their singing behavior and selectivity mating with males which have a particular singing behavior has been suggested by several researchers. Unfortunately, this possibility remains controversial and, to date, inadequately tested. Dr. Derrickson will conduct an integrated series of experiments to test if female mockingbirds can distinguish among different singing behaviors. In each experiment, tapes of different singing behaviors will be presented to captive females. How females respond behaviorally and physiologically to these different tapes will allow Dr. Derrickson to determine if they do indeed distinguish among singing patterns and if this capability might have caused such complex singing to have evolved.